U.S.-France Cooperative Research: Rheology and Deformation Mechanisms of Materials with Perovskite, Ilmenite and GarnetStructures at High Pressure and Temperature

This award will support collaborative research in geophysics between Dr. Harry Green, University of California, Davis, and Professor J.C. Doukhan, Laboratoire de Structure et Proprietes de l'Etat Solide, University of Lille-Flandres-Artois, France. The objectives of the project are to investigate the rheology and deformation mechanisms of materials with perovskite, ilmenite and garnet structures at high pressure and temperature and to study applications to flow in the Earth's mantle. The Earth is slowly cooling by convection in its interior. Earthquakes, volcanoes and continental drift are all consequences of this slow convective flow in the rocks of the mantle. Considerable experimental work has been performed on the mechanisms of solid-state flow in the upper mantle over the last twenty years, but the type of apparatus capable of controlled deformation and stress measurement at pressures equivalent to greater depths does not exist. Recent results in Dr. Green's laboratory strongly support the use of structural analogues of deep mantle phases to advance the understanding of deep mantle flow. In this project, the investigators propose a collaborative effort to determine the rheology and flow mechanisms of perovskite, ilmenite and garnet structures at high pressure and temperature. The results of this study will contribute greatly to models of deep-mantle and/or whole-mantle convection and will allow semi-quantitative assessment of the current controversy over whether or not the lower mantle is significantly more viscous than the upper mantle. Experiments will be conducted in the US with unique high pressure deformation equipment. Analysis by transmission electron microscopy will be carried out in France. The project will benefit from the expertise of the US investigator in the rheology of geological materials and the extensive experience of Dr. Doukhan in transmission electron microscopy of the deformation microstructure of complicated ceramic and mineral crystal structures.